Discrete Groups, Expanding Graphs and Pro-P Methods

The project looks at several seemingly unrelated problems from a
unified perspective. It deals with questions of expansion of Cayley
graphs of finite groups, eigenvalues of Riemannian manifolds and
pro-p groups. Somewhat unexpectedly, methods and results from one
field shed a new light on the other areas.

The work is promising to be very interdisciplinary and should
have, if successful, a serious impact on several mathematical fields,
pure and applied. On the pure side, it is expected to have a
completely new approach toward the Thurston conjecture on three-
dimensional manifolds. On the applied side, it will bring a better
understanding of expanding graphs, graphs which serve as basic
building blocks for various communication networks.